Purchase of Microwave Spectrometer Upgrade

The role of microwave spectroscopy in the elucidation of the quantitative structure (nuclear geometry) and other fundamental properties (electric dipole moments, quadrupole coupling constants, potential energy surfaces, etc) of molecules is well established. A significant advantage of microwave spectroscopy is that it is much more amenable to the study of unstable and transient molecules than are experimental techniques such as gas electron diffraction and X-ray crystallography. Thus, microwave sepctroscopy plays an important and often essential role in the understanding of molecular structure and molecular electronic properties. This award to the Chemistry Department of the University of Kansas will help purchase instrumentation that will upgrade the microwave spectrometer. The microwave spectrometer will be used in the following areas of research: 1. Determination of near-equilibrium structures 2. Microwave Spectroscopy of Oxiranones 3. Microwave Spectroscopy of Difluormethylenecyclopropanes (enes).